Santa Fe II Conference "Remagnetization and Environmental Rock Magnetism: Clues to Records of Past Geodynamics and Global Change"; June 23-26, 1994; Sanata Fe, New Mexico

9406181 Banerjee The PI will organize and run a topical workshop on "Remagnetization and Environmental Rock Magnetism: Clues to Records of Past Geodynamics and Global Change" for a group of about 50 participants, including approximately 16 graduate students and postdocs. The workshop will feature a number of invited speakers and will address questions of how magnetic signatures can provide information on past climate change. ****